Mathematical Sciences: Postdoctoral Research Fellowship

The Mathematical Sciences Postdoctoral Research Fellowships are awards to recent recipients of doctoral degrees. The fellowship is designed to provide 24 months of support divided into 18 academic months and 3 periods of two summer months. The recipient has the option of a Research Instructorship which allows the 18 months of academic support to be taken as 9 months of full-time support and 18 months of half-time support. Mathematical Sciences Postdoctoral Research Fellowship awards allow fellows to choose research environments that will have maximal impact on their future scientific development. John Strain received his doctoral degree from the University of California, Berkeley, and will pursue research in the area of applied mathematics and pure mathematics, specifically, partial differential equations and moving boundary problems, under the guidance of Luis Caffarelli at the Institute for Advanced Study.